Zooarchaeological Analyses of Holocene Central Coastal California Archaeofaunas

In this project, Dr. Diane Gifford-Gonzalez and students will
undertake detailed analysis of fauna from one large and about 18
smaller archaeological sites on the Monterey Bay, in central coastal
California. The aim of the study is to evaluate whether and how
environmental processes affected people living along the coast over
the last 6000 years. Today, global climate change threatens the
livelihoods of people and the continued survival of animal species,
along the Pacific Rim. Archaeological sites contain records of past
climatic events and human responses to them. They are thus
repositories of crucial evidence on how extreme swings in ocean and
land productivity were in pre-industrial times. We know that, just
as today, global climate change affected life on both land and sea.
Although a major agricultural powerhouse in the United States and a
tourist destination for those seeking abundant marine life, the
Monterey Bay area's deeper history is as yet poorly understood. For
about six years, Dr. Gifford-Gonzalez and colleagues from the
Department of Earth Sciences have been researching the history of
marine temperatures and productivity, as well as shedding light on
the disappearance of northern fur seals from coastal California about
1000 bp. The present project follows a three-year NSF-funded
collaborative project that indicated that northern fur seals - a
presently threatened species -- have radically changed their breeding
and migratory behavior. Radiocarbon dates on their bones show their
breeding colonies were not abandoned simultaneously along the entire
Pacific margin. Research results indicate that NFS disappearance in
central California did not coincide with changes in marine upwelling
patterns that could have affected their food base, strengthening the
odds that ancient people had a hand in their regional extirpation.
However, so far, we have no detailed evidence that people were driven
to wipe out fur seals due to hunger, whether the severe droughts
during the Medieval Climatic Anomaly (800-1350 AD) could have
affected NFS colonies themselves, or whether the droughts drove
people to drive these animals extinct.

Dr. Gifford-Gonzalez, graduate students in archaeology, and
undergraduates chosen for special skills development will explore
these questions with faunal remains from regional archaeological
sites. One of these sites, the Moss Landing Site (CA-MNT0234) is a
virtual untapped "Rosetta Stone" for regional archaeology, with
components dating from 8500 years ago to Spanish contact. This site
was well excavated and curated during FEMA-funded rebuilding of the
Moss Landing Marine Laboratories after the Loma Prieta Earthquake.
However, time demands of contract archaeology precluded the close
analysis that the site deserves, to tell its full story of climate
change, human resource use, and animal geography. This study will
provide insights into the pre-modern human land use and interactions
with food species over time. Our data on historical human and
animal ecology will be available to wildlife and conservation
biologists making management decisions about such species. It will
provide excellent professional training for graduate students in
archaeology and extraordinary, on-site research opportunities for
undergraduates.